Renovation of Research and Research Training Facilities at the Nova University Oceanographic Center: Schure, Mellon and Forman Buildings.

The award is to renovate research and research training facilities in three structures at the Nova University Oceanographic Center: the Schure, Forman, and Mellon Buildings. Renovations include installation of fixtures and furnishings for 8 biological laboratories. The Oceanographic Center forms a department level division of Nova University. Its mission is to perform quality scientific research and to deliver high caliber scientific education. Academic responsibilities have increased considerably in the past two years: the Oceanographic Center faculty is now responsible for all undergraduate science offerings as well as graduate programs in Oceanography. Community outreach is also a priority. New Center faculty have been added and more are planned to meet the Center's growing research and education mission. Most current biological facilities required for this mission are either inadequate or non- existent. Renovations will promote faculty and student research activities. Improved laboratories will enhance research efficiency and will allow students to become directly involved in active research projects. It is anticipated that renovations will attract more and higher quality undergraduate and graduate students into Nova's programs in marine and biological sciences.